Diophantine approximation, Nevanlinna theory, and jet differentials

The investigator studies diophantine problems from the point of view of
the analogy with the value distribution theory of holomorphic curves
(Nevanlinna theory), and vice versa. Specifically, a substantial
component will consist of general work in algebraic geometry on the
theory of jet spaces. This work will then be applied to one or more
of the following topics:
(i) work on finding a suitable generalization of Semple-Demailly quotient
jet spaces to the general context of an arbitrary morphism of schemes,
(ii) formulation of a theory of log jet spaces over log schemes,
(iii) investigation of Yamanoi's proof of the "1+epsilon" conjecture, and
(iv) a search for a number-theoretic counterpart to the lemma on the
logarithmic derivative.

This project involves number theory (specifically, solutions of polynomial
equations in integers or rational numbers, as well as related inequalities)
and value distribution theory (inequalities satisfied by power series
functions of one or several complex variables). These two seemingly
disparate areas of mathematics have many phenomena in common. This has
been partly explained by a formal analogy between the two fields, which
has led to new conjectures, shorter proofs of existing theorems, and new
theorems. The present project uses this analogy to further elucidate
the underlying structure of number theory, value distribution theory,
and the analogy between the two fields.